Mantle Evolution Beneath the Greenland Sea

The Principal Investigator will analyze samples from 40 dredge stations occupied along the kolbeinsey, Mohns, and Knipovich ridges from 65 to 80 N. The petrology, trace element and Nd-Sr isotope ratios of these samples already have been studied. Pb isotope ratios and Th-U-Pb concentrations will be measured. The results will provide a complete date base for modelling crust and mantle processes associated with the Greenland basin, and the dynamic and thrmal influence of the Iceland and Jan Mayen plumes on the ridges.